WHITE HOUSE CONFERENCE ON SCIENCE AND ECONOMICS RESEARCH RELATED TO GLOBAL CHANGE, APRIL 17-18, 1990, WASHINGTON, DC

Abstract The President's White House Conference on Science and Economics Research Related to Global Change April 17-18, 1990 Washington, D.C. The White House Conference, hosted by President Bush, is designed as an important step towards substantially enhancing and broadening international understanding of the critical science and economic research issues, framing a strategy for implementing a joint international science and economics research effort and linking that knowledge to the policy process. The Conference will be devoted to science and economic issues relevant to policies on global change, including climate. The primary objectives of the Conference are to: Improve our understanding of the current state of international knowledge in scientific and economic research, Identify major gaps and uncertainties in both scientific and economic understanding, Assess the analytic tools and data that are found to be essential to improving both national and international environmental policy, and sensitizing the three communities involved to the activities and needs of the others in addressing global change research, and. Develop a joint "Strategy Document" in which the expertise, experience, and data available in the participating countries can be brought together in a more integrated and coherent fashion to address global change issues.